Task-Level Perception From Kinesthetic Sensors

This research explores perception of task-level information from kinesthetic sense data in mobile manipulation tasks. A mobile manipulator interacts with the terrain through its feet or wheels, and it interacts with fixed or mobile objects through its hands, wheels, bumpers, or other effectors. All of these interactions contribute to the robot's motion and to internal shape deformations of the robot, which can be detected by encoders, strain gauges, and other sensors. This kinesthetic sense data can be used to estimate features of the terrain, locations of objects, location of the robot, contact state between the robot and objects, and other task variables. This project is developing a theory of task-level kinesthetic perception, by developing suitable models of task and robot dynamics, and using the framework of nonlinear observability to analyze specific tasks and develop algorithms for estimating task parameters and state variables. Experimental work includes evaluation of several mobile manipulator designs, implementation and testing of observers, and demonstration in mobile manipulation tasks.